Subtle Tests of the Standard Model

Research in theoretical elementary particle physics will focus on the
interactions of heavy quarks, namely charm, beauty and top quarks. Among
the central mysteries of the so-called Standard Model of Elementary
Particle Physics are the questions of how the basic constituents of matter
-- namely quarks and electrons -- acquire their masses and why they come
in so-called families, which are exact replications of each other except
for their masses. The mystery of the mass generation process can be
studied in the most sensitive way by studying limitations of time reversal
invariance. Violations of this invariance are also an essential ingredient
when one tries to understand the observed preponderance of matter over
antimatter in the universe as a dynamically generated feature rather than
as an arbitrary initial condition.
The goal of this research is to calibrate and refine the theoretical
tools needed for a proper and accurate interpretation of heavy-quark data
which bear on the mysteries of the origin of mass and of violations of
time reversal invariance.